Crustal Reflection Profiling Across Oldest Archean Crust and Crustal Sutures in West Greenland

The Archean rocks of West Greenland represent some of the best- exposed, best-studied, oldest rocks known and thus constitute a prime target for crustal reflection studies. This grant will support a crustal reflection study across the oldest Archean deformation zone. This will be based on vertical-incidence marine reflection profiling across the strike of Archean structures along the coast and wide-angle recording of the marine air guns on land. The ship will also traverse several fjords firing the air guns to also obtain 1000 km if vertical-incidence reflection data and extensive wide angle recording to give a very extensive data set. The vertical incidence data will produce structural detail and the wide-angle data will give crustal velocity profiles. The research is a cooperative project between Norwegian, Danish, and U.S. scientists. Problems to be attacked by this research include: 1) continuation of the deformation zone to depth; 2) crustal shortening and mode of deformation, 3) role of volatiles in the deep crust, 4) change in Moho depth, 5) Archean crustal development, 6) nature of deep crust under granulites, and 7) continuation of supracrustal rocks to depth.